Online Algorithms

Online computation involves optimization problems for which the input is
revealed progressively. Online algorithms base their decisions only on the
past without knowledge of the future, much in the same way that a stock
market investor or a robot that explores an unknown environment decide
about their next action. Naturally such problems of decision-making with
incomplete information arise in many areas. During the last decade
research in the area of online algorithms has been very intensive. Still,
some of the fundamental problems remain unresolved and important problems
arise from new applications. The project deals both with old and new
online problems.

Perhaps the most important fundamental unsolved problem is the k-server
problem. The objective is to settle the k-server conjecture and to
investigate other variants of the problem such as the k-taxicab problem
and the CNN problem. Another objective is to design and analyze
competitive algorithms for a related problem, the online matching problem
on Euclidean spaces; some interesting variants of the problem seem to play
a central role in new e-commerce applications. For all these and many
other problems, one algorithm, the generalized Work Function Algorithm,
seems to have almost optimal competitive ratio. The research addresses the
roots of this phenomenon.

Research deals also with the pertinent problem of indexing of databases;
the size of datasets of real applications has been increasing dramatically
and so does the importance of good indexing schemes. Competitive analysis
can be used to quantify how much the performance of indexing schemes is
affected by changes in a database. Finally, the techniques of competitive
analysis are a useful tool to address specific game-theoretic problems in
networks.